China-US Group Theory Summit 2019

This award supports participation of US-based researchers in the China-US Group Theory Summit 2019 held at Texas State University in San Marcos, TX, on August 22-25, 2019. Group theory is a branch of modern algebra studying the notion of symmetry. It is a fundamental and highly active field of research within the mathematical sciences and has ramifications throughout all of mathematics and the sciences. There are large communities of group theory researchers in all continents, and they keep in touch through international meetings and conferences. However, local conditions and cultural circumstances under which mathematical research is done differ quite a bit between different regions of the world. The focus of this proposal is on research in group theory in the USA and in China. One major goal of the conference is to establish and strengthen ties between group theorists in China and the USA. It is the first conference in group theory with this focus.

The conference will provide group theory researchers in China and the USA a forum to disseminate their own research as well as to learn about new and significant results in the area. It will help to bridge the gap between the group theory communities in the United States and China, and lead to future cooperation and collaborations. Speakers from both countries will cover a large variety of the subjects in the area, which include representations of solvable groups, representations of simple groups, character theory, classes of groups, groups and combinatorics, p-groups, and fusion systems. There will be about fifteen invited talks and a limited number of contributed talks. The conference will provide an inviting atmosphere to foster new collaborations; young researchers will have the opportunity to present their work and learn about the latest developments in the field. It is expected that it will have a great impact on the math research communities in both countries. More information about the conference can be found at https://www.math.txstate.edu/research-conferences/gtsummit.